New Structures in Enumerative Geometry

In the last few decades, a deep and surprising interplay between the mathematical field of algebraic geometry and the physics of string theory has been discovered. Physical predictions have led to the construction of new numerical invariants which provide novel insights into the geometry of different spaces. These invariants, which were initially difficult to rigorously define and calculate, can now be accessed using methods from algebraic geometry and also symplectic geometry (the study of spaces similar to phase spaces that arise in classical mechanics). Motivated by conjectures and intuition from mathematical physics, the principal investigator (PI) plans to study new classes of enumerative invariants, their general structure, and relations between different enumerative theories. This project, while developing new tools and methods in algebraic geometry, has at its roots conjectures originating in theoretical physics. As such the project will help elucidate and verify physical conjectures, thus furthering understanding in this field.

The goal of enumerative geometry broadly is to study a space by counting subspaces of a certain type. Gromov-Witten theory, for instance, defines invariants of a smooth complex algebraic variety X which give approximate counts of the number of complex curves in X. Another theory, Fan-Jarvis-Ruan-Witten (FJRW) theory, is defined similarly, but gives invariants of a singularity rather than a smooth variety. Predictions by Witten and other physicists studying mirror symmetry indicate that these invariants have a rich structure and are often related to each other in surprising ways. The recent introduction of the concept of so-called Gauged Linear Sigma Models (GLSMs), which simultaneously generalize Gromov-Witten theory, FJRW theory and many others, has the potential to transform the current understanding of enumerative geometry. While giving a unified framework for many different theories, defining enumerative invariants for GLSMs may provide new methods for computing Gromov-Witten invariants--a longstanding goal in both physics and mathematics--and will clarify certain mysterious correspondences between different theories such as the crepant transformation conjecture and the Landau-Ginzberg/Calabi-Yau correspondence. The PI will give a general algebro-geometric construction of enumerative invariants associated to GLSMs, and use this new construction to realize those applications described above. The PI will also develop new computational techniques in Gromov-Witten theory, explore the recursive structure of these invariants (as predicted by the Witten-Kontsevich Theorem and the Virasoro Conjecture), and prove new correspondences related to mirror symmetry.